Acquisition of Fourier Transform NMR Instrumentation

Nuclear Magnetic Resonance (NMR) spectroscopy is the most powerful tool available to the chemist for the elucidation of the structure of molecules. It is used to identify unknown substances, characterize specific arrangements of atoms within molecules, and to study the dynamics of interactions between molecules in solution. Access to state-of-the-art NMR spectrometry is essential to chemists who are carrying out frontier research. This award from the Chemistry Shared Instrumentation Program will help the Department of Chemistry of the University of California, Davis to acquire a high-field NMR spectrometer. The areas of research that will be enhanced by the acquisition include: 1) Synthesis, structure and reactivity of transition metal comlpexes 2) Synthetic organic chemistry, immunochemistry, plant biosynthesis 3) Synthetic and mechanistic organosulfur and organophosphorous chemistry 4) NMR studies of multiply bonded boron, nitrogen, aluminum, silicon and phosphorous compounds 5) Mechanistic and synthetic organometallic chemistry 6) Chemistry, biochemistry and spectroscopy of pyrrole pigments.